CAREER: An Experimental MHD Dynamo

The project is designed to understand current and magnetic field generation in plasmas and other magnetohydrodynamic systems. The experiments will investigate the generation of a dynamo using liquid Na.